West Coast Operator Algebra Seminar; October 2-4, 2003; Alberta, Canada

Abstract
Blackadar

The proposal is for partial support of the West Coast Operator Algebra Seminar (WCOAS). The planned WCOAS conference is a continuation of a conference series on operator algebras and noncommutative geometry with focus on participants from the western states. The primary objective of the meeting is to bring together graduate students, young investigators, and more senior researchers. The program features plenary talks by eminent mathematicians, with parallel sessions of contributed papers by younger participants. The funding will be used primarily for the travel support of graduate students and young PhDs.